Regulated Secretion of BDNF

0078311
Bothwell

It is currently believed that biologically active polypeptides, such as
peptide hormones and growth factors, may be secreted by two alternative
processes - an unregulatory secretory pathway and a regulated pathway, and
it is thought that all polypeptides share the same regulated secretory
mechanism. For cells that display regulated secretion of several different
peptide hormones and growth factors, this model predicts that cells cannot
regulate release of these polypeptides independently. Preliminary results
indicate, however, that there must exist at least two distinct pathways for
secretion of biologically active polypeptides, potentially allowing cells to
independently control the release of hormones and growth factors that have
different functions. The novel pathway is revealed by studies of the
secretion of the neurotrophic factor, BDNF. Regulated secretion of BDNF by
brain nerve cells is of profound importance, because BDNF participates as an
important regulator of synaptic transmission in the context of memory and
learning. The general goal of this proposal is to examine the mechanisms
regulating secretion of BDNF in pituitary cells (which serve as a convenient
model system for study of regulated secretion) and in nerve cells from the
hippocampal and cortical regions of the brain. Secretion of BDNF will be
compared to secretion of structurally related neurotrophic factors, NGF and
NT-3. Also secretion of BDNF will be compared to secretion of
neuropeptides, such as ACTH and NPY. Some experiments will directly monitor
the release of these polypeptides, from cultured cells, using immunoassays.
Other experiments will compare the distribution of these polypeptides in
secretory vesicles within the cell, by immunohistochemical techniques.

These studies may have broad importance for understanding hormone action in
the endocrine system, and for understanding nerve cell communication in the
brain. The orderly function of all tissues of the body is dependent on
communication between cells. A major method of cell-cell communication
involves secretion of specific polypeptides, which act as messenger
molecules. The release of these polypeptides, which may be called peptide
hormones, neuropeptides, or growth factors, must be carefully controlled.
This project explores the possibility that cells can control release of
these polypeptides much more cleverly than was realized previously.
Thoroughly characterizing these controlled release mechanisms is essential
for a basic understanding of biological processes ranging from hormone
action to memory and learning.